Furthering U.S. Interests and Leadership in International Geoscience

The International Council for Science (ICSU) includes four unions, which focus on the geosciences. These are the International Unions: of Geodesy and Geophysics (IUGG); for the Geological Sciences (IUGS); for Quaternary Research (INQUA); and for Soil Science (IUSS). These unions play an important role in fostering wide international exchange and dissemination of information, knowledge, and ideas. They promote strong international cooperation in the various fields of geosciences covered by these unions and provide, through the participation of U.S. scientists, an important vehicle for broad dissemination of research results. They also provide a forum in which U.S. geoscientists can exercise effective international leadership in areas of the geosciences that are especially important from the perspective of U.S. science. U.S. participation in and support for these unions is provided through U.S. National Committees (USNC's) for each union. These USNC's are comprised of distinguished geoscientists who are well aware of the state of the science, both nationally and internationally. The UNSC's plan and implement U.S. participation in the unions and keep the U.S. geosciences community informed of union activities.